Building Capacity Among Junior Researchers in the Learning Sciences: A Request for Special Program Support for the International Conference of the Learning Sciences (ICLS) 2000

Building Capacity Among Junior Researchers in the Learning Sciences: A Request for Special Program Support for the International Conference of the Learning Sciences: 2000

This is a SGER proposal to support graduate students to attend the International Conference on the Learning Sciences to be held in Ann Arbor June 14-17, 2000. The funds would support the development of 3 workshops on methodology, would support junior faculty attending the meeting, and would provide support for graduate students to attend at a reduced price. Also, the conference will hold a consortium for graduate student research at which students would present summaries of their research in process and receive comments from nationally recognized faculty.